Dissertation Research: Negotiation of Social Power in Traditional Musical Production

This award supports the dissertation research of a cultural anthropologist who will study the negotiation of social power through the shaping of traditional Black music styles in the South African music industry. The student will study the production process in the recording studio, where engineers and music producers contest and negotiate the content and cultural qualities of the music being recorded. The basic issues to be examined are the sources of control over the content of the music. Methods include ethnographic participant observation of several studios in Johannesburg; recording and transcription of the work in progress, open ended interviews with participants, observation of talent scouting trips into the rural areas, and observation of live performances. The power of popular music to define the cultural position of people in their society is striking throughout the world. Understanding how the cultural content of music gets produced in this particular case (as more or less traditional in a context where tradition is related to race in a complex way) can aid understanding of the function of music in multi-ethnic society in general.